Project S.C.A.M.P.; Science, Computers,and Mathematics Professions

Northern Illinois University will initiate a 3-week residential Young Scholars project for 32 students in grades 7-9 in mathematics. The development and use of mathematical models in integral to scientific research. Recent technological developments have provided new tools for mathematical modeling including graphing calculators and microcomputers. The focus of this project is to familiarize students with mathematical modeling and its role in many diverse areas of scientific endeavor. By exposing students to a variety of scientists and mathematicians using mathematical modeling in their work, the project will stimulate interest in science disciplines as possible and realistic career choices and make the students aware of the academic preparation necessary for such careers. This project, using the theme of mathematical modeling as an introduction to experiences in other disciplines, is designed to do precisely that. Each cycle of the project, lasting one year, will consist of a three-week residential camp during July and August, follow-up activities during the academic year, and a culminating one-week residential camp during the following June.